2002 Tetrapyrroles Gordon Conference; July 14 -19, 2002, Newport, Rhode Island

This application requests support for the 19 th Gordon Research Conference on the
Chemistry and Biology of Tetrapyrroles, to be held at Salve Regina University,
Newport, RI, from July 14-19, 2002. The specific aims of this conference are the
following:
1) To provide a forum for discussion of recent unpublished data by scientists with
common interest in the study of the chemistry and biology of tetrapyrrole compounds.

2) To promote the exchange of ideas between established and new investigators from a
wide variety of scientific disciplines (e.g., chemists, biochemists, clinicians, plant
biologists, microbiologists, biotechnologists) by providing ample discussion time
following formal presentations, by holding poster sessions which serve as a focus for
the discussion of common interests.

This biennial interdisciplinary conference has stimulated collaborations between basic
biologists, chemists and clinicians interested in tetrapyrroles for more than three
decades. In association with proteins, tetrapyrroles serve diverse roles as biological
redox catalysts, in the harvesting of light energy, in the activation and delivery of
oxygen, and as signaling molecules. Free tetrapyrroles are also essential nutrients
(e.g., vitamin B12), serve as regulators of gene expression (e.g., hemes), and are being
utilized as therapeutic agents (e.g., photodynamic cancer therapy, target delivery of
radionuclides). Owing to their photodynamic activity, toxicity and lipophilicity, the
accumulation of tetrapyrroles (e.g., porphyrins, bilirubin) is associated with numerous
pathologies of the skin, liver and brain. For these reasons, this conference represents
an important venue for exchange between basic and applied researchers on
tetrapyrroles and for refinement of new tools and therapies for development by the
biomedical industry. Funds requested in this application are targeted to support 10
young investigators who have not previously had the opportunity to attend this
conference and for travel of two young ioprimarily undergraduate institutionle
researchers. The sessions, which highlight recent technological progress, will include
22 invited speakers, a plenary lecturer and 14 discussion leaders. All of these
individuals have been selected for their scientific excellence, recent innovative work
and contribution to the breadth of the program. The remaining 100 conferees will be
chosen to ensure a broad representation of women, ethnicity and young scientists from
various disciplines in academia, medical research institutions and industry. Strengths
of this ongoing Gordon conference are its high disciplinary diversity, integration of
research from basic chemistry through practical and clinical applications, focus on
new unpublished work, time for discussion, informal atmosphere, and ban on
dissemination of conference proceedings, (which it is essential to assure
confidentiality when discussing unpublished results).